Constructive Abstraction of Logic and Mathematical Concepts through Interactive Games

9362028 Miccotto There is a definite trend in early childhood education away from rote learning methods toward more child directed, activity based learning. As children act upon and change the external environment, they internally construct knowledge. Constructivism stresses hands-on interactive learning through problem solving activities that provoke thought and reflection. Many early childhood educators have endorsed and integrated games as a primary means of Mathematics and Logic education. Some games can provide an excellent opportunity for children to compare, seriate, equate, count, and establish a concept of number and logic. Unfortunately, they games weren't designed for this specific purpose, and often don't provide the level of interaction desired. Furthermore, todays sophisticated children often tire of simple games. We propose to empirically test the hypothesis that interactive games can more efficiently promote constructive abstraction of the concept of number, concept of inclusion, concept of conservation, and other basic mathematical and logical thought functions. Cognition of these concepts at an early age would lay the foundation for development of higher rational powers and independent thought. Furthermore, it would directly improve mathematics performance, confidence, and enthusiasm in later education. ***